Mass Dependence of Strontium Isotope Fractionation

Strontium (Sr) isotopes have been used for over 40 years to examine geological processes,
e.g. age of rocks or provenance. More recently they have been applied to biological
samples to examine animal migration and nutrition. These latter applications assume that
Sr isotopes are not fractionated in these biological systems. It is this hypothesis that
will be tested by this project. Should there be significant mass dependent fractionation
of Sr, much of the current Sr isotope measurements in non-geological systems would have to
be revisited to check for accuracy. This will have a substantial impact on the use of Sr
isotopes across many avenues of the biological sciences and open up new fields of research
in earth sciences working with the mass dependence of Sr isotopic fractionation.
For the further use of the Sr isotope system as a robust tracer it is vital that the mass
dependence fraction of Sr is completely understood. This project will examine in detail
how prolific this effect is.